Mathematical Sciences: Multivariate Splines: Theory and Application

9303121 Lai The investigator studies bivariate splines of smoothness rand degree d with a small d vs. r to enhance the efficiency of using bivariate splines to solve application problems, and uses new or recent results on multivariate splines to solve some application problems in computer aided geometric design, numerical image processing, and numerical solution of partial differential equations. Multivariate splines are piecewise polynomial functions with certain smoothness. The pieces need not fit together as smoothly as if they all were part of the same polynomial. Roughly speaking, the higher the degree of the piecewise polynomial relative to its smoothness, the more roughly the pieces can fit together. Because polynomial functions are the easiest functions to manipulate and because almost all problems in the real world are multivariable or multiparametric in nature, multivariate splines are a good tool to model the target functions. Although the theory of bivariate splines with large degree versus smoothness is available, bivariate splines have too large a degree to be used in practice efficiently. That is, only bivariate splines with small degree versus smoothness can achieve the efficiency and the accuracy required by computer aided geometric design, numerical image processing, and numerical solution of partial differential equations. At present, those bivariate splines can be constructed for a few cases. The project undertakes aspects of a general theory of such splines, with an eye to the applications. ***